CAREER: Scalable, Robust and Secure Group-Oriented Services for Wireless Mesh Networks

Cristina Nita-Rotaru
Purdue
0545949

Abstract
Wireless mesh networks are emerging as a promising robust low-cost
network architecture able to provide increased coverage and larger
bandwidth, resulting in higher quality of service and information
availability.
Many distributed applications provided on wireless mesh networks enable
collaborations and sharing of information. Such applications benefit
from scalable, robust and secure group services such as
one-to-many or many-to-many multicast and distributed data access.
Group services, in turn, require support from infrastructure protocols
such as routing, or security mechanisms such as authentication, access
control and key management.

The goal of this project is to advance state-of-the-art group-oriented
services in the context of wireless mesh networks. The project presents
new formulations of distributed problems capturing the particularities of
wireless mesh networks and the interactions between security, availability
and scalability. It also studies the viability and limitations of cross-layer
design as a new paradigm of building secure network services. Innovative
results consist of scalable one-to-many and many-to-many wireless
multicast protocols that provide support for efficient group communication, scalable
data sharing algorithms that are robust to malicious behavior,
high-throughput, robust and secure routing that assist applications to achieve
high-performance, scalable key management protocols and authentication
mechanisms enabling decentralized infrastructure access services.
This project contributes to the education of the next generation of secure
systems designers, generating interactions between the distributed
systems, security and wireless networks research areas.